Conference: Group Theory and Representation Theory: Recent Developments and Interactions

The conference "Group Theory and Representation Theory: Recent Developments and Interactions" will be held on April 9-11, 2027, at Kent State University. The conference will bring together researchers working in group theory, representation theory, and closely related areas of mathematics. Group theory is the mathematical study of symmetry and has become an essential tool not only in mathematics but also in fields such as physics, chemistry, computer science, and cryptography. One of the main goals of the meeting is to encourage interaction among researchers whose work is connected through group theory but has developed in different directions over time. By supporting travel for invited speakers, graduate students, postdoctoral researchers, early career faculty, and participants with limited access to other funding, the conference will make it possible for a broad range of researchers to exchange ideas, establish new collaborations, and strengthen the mathematical community.

In more detail, the conference will feature recent developments in group theory and its interactions with representation theory, algebraic groups and finite groups of Lie type, character and block theory, group cohomology, computational group theory, and quantum field theory. Beyond presenting new results, a central objective of the meeting is to explore the connections among these areas and to encourage interaction between researchers who often approach related problems from different perspectives. By bringing together communities that do not often meet in a single event, the conference aims to inspire new directions in the study of group theory and its neighboring disciplines. The conference website is https://sites.google.com/view/kellerlewis60conference.